CSR: Small: Beating Implementations of C++11 Concurrency Into Shape

The recently-ratified C and C++ standards, "C11" and "C++11"
respectively, add a concurrency model that supports writing
high-performance, portable code for machines with multiple processors.
The concurrency model, however, is large and complicated; it is not
particularly easy for compiler and library developers to get all of
its corner cases right. Errors in implementing the new model can
introduce bugs into important pieces of software, such as operating
systems, web browsers, web sites, database engines, and embedded
systems, all of which are written, at least partially, in concurrent C
and C++.

The PI's previous work on randomized testing for C compilers uncovered
more than 450 bugs in production-quality compilers, most of which were
fixed by compiler developers. The PI's current project extends this
research agenda to support stress testing of implementations of the
C11 and C++11 concurrency model. The intellectual merit of this work
stems from the need to generate random, but standards-conforming,
concurrent code; the need to synthesize "test oracles" that can
automatically ascertain the success or failure of a test case; and,
the need to develop "hostile" simulators for flushing out errors in
compiled concurrent code.

The expected impact of the PI's work is to significantly reduce the
period during which implementations of the C11 / C++11 concurrency
model are flaky and immature, and to reduce the lifetime of compiler
bugs that are introduced during ongoing development.